Acquisition of a 400 MHz NMR

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Southern Illinois University at Carbondale will acquire a 400 MHz NMR Spectrometer. The research that this instrument will support includes the synthesis and characterization of a variety of exciting new materials including polar thin films prepared via liquid crystalline self-assembly, new grafted polymer brushes prepared via surface initiated polymerization, metal phosphonates containing charge-transfer complexes, solid-state host-guest materials, soluble semi-conducting group (IV) metal backbone polymers, novel nanowires and alkylthiolate protected gold nanoparticles.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in materials chemistry and nanosciences.